Mathematical Sciences: Regularity Properties of Ideal Flow and Nonlinear Waves.

This project is focussed on two basic areas in the field of nonlinear partial differential equations. First, the principal investigator aims to study the question of breakdown of three- dimensional incompressible and ideal fluid flow from the numerical and theoretical point of view. Second, he plans to investigate some regularity questions for the nonlinear Klein-Gordon equation: delayed singularity formation and global existence in low dimensions and breakdown of large amplitude solutions to three-dimensional semilinear equations. These studies will accrue to the foundations of applied areas such as aerodynamics, and wave propagation.